Algorithms and Complexity

Methods for the design and analysis of parallel algorithms are being developed. Efficient algorithms for computational problems arising in various areas are being constructed. These areas include robot vision and motion and learning and reasoning under uncertainties. Problems arising in game theory and fixpoint computations are also being studied from the standpoint of computational complexity. It is anticipated that this program of research will make important contributions not only to the understanding of parallel computation, but also to the solution of engineering problems in robotics, and to the understanding of problems in artificial intelligence and economic theory.